CISE Research Instrumentation

A front-end interface to a Connection Machine will be provided for researchers at the University of Southern California for research in the School of Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area of design and implementation of parallel algorithms for vision.